RUI: Transition State Treatment of Nuclear Fragmentation

A particular model for the treatment of the fragmentation process in heavy-ion collisions will be investigated. The transition-state treatment, based on a generalization of the method commonly used to study nuclear fission, will serve as the basis for a computer code aimed at predicting the mass, energy, momentum, and spin distributions of the fragments that emerge from energetic nuclear collision.